Conference: 2026 Intrinsically Disordered Proteins GRS

The 2026 Gordon Research Seminar (GRS) on Intrinsically Disordered Proteins (IDPs) is being held at the Les Diablerets Conference Center in Switzerland on June 20-21, 2026. This will be the sixth of a series of biannual conferences primarily attended by graduate students and postdocs. This seminar will bring together trainees from a wide range of disciplines to discuss current directions in the IDP field, as well as examine the interdisciplinary experimental, conceptual and quantitative demands of contemporary IDP research. The GRS provides an ideal setting to facilitate international and interdisciplinary collaboration. It will also provide key networking opportunities, as well as allowing a range of different perspectives to be discussed and compared - a key aspect for such a broad field.

The 2026 IDP GRS is focused on quantitative approaches and biology of intrinsically disordered proteins. The GRS program features three formal sessions, one featuring a keynote speaker and two trainee-led sessions curated from abstract-selected talks. The three scientific oral presentation sessions highlight contemporary questions in the IDP field that have emerged from these cross-disciplinary conversations. There are also two poster sessions and a mentorship panel covering academic funding acquisition. The meeting will feature up to 80 participants. The three thematic pillars are: (i) quantifying conformational dynamics and linking ensembles to function (keynote by Prof. Hagen Hofmann); (ii) integrating quantitative experiments with theory and molecular simulation to derive predictive mechanistic insight; and (iii) connecting molecular-scale principles to cellular assemblies and condensates that drive emergent biological behavior. The final session of the GRS is reserved for a mentoring panel where trainees can freely ask questions and engage in open discussion with a select group of faculty members. This panel is designed to help trainees better understand the grantsmanship process across career stages.